Instrumentation Laboratory for the Electro-Mechanical Engineering Technology Program

This project provides support facilities for an interdisciplinary instrumentation and measurement course in a newly designed Bachelor of Science in Electro Mechanical Engineering Technology program. Transducers and sensors that are highly interdisciplinary will be introduced to the audiences. Laboratory experiences of this nature greatly assist students in becoming familiar with numerous types of transducer, data acquisition, principles of data communication, as well as advanced graphical engineering software. Specifically this project (1) introduces both digital and analog instrumentation and measurement to the students; (2) allows students to acquire data from transducers in an automated fashion; (3) allows students to use their acquired data for further mathematical and graphical analysis; and (4) introduces the principle of local networking to the students and provides a vehicle for training hands on. The experiments in this laboratory are designed to be flexible in order to permit modification and to allow the students to experience interdisciplinary work exercises. The data acquisition, data communication, and post-data-acquisition parts permit the students to become familiap with the theoretical aspects of experiments.